Symplectic Topology

9704825 McDuff One of the main tools that has recently revolutionized the study of symplectic geometry is the use of analytic methods (non-linear versions of the Cauchy-Riemann equations). In the past year, a serious technical problem in this theory has been overcome, so that it now applies to all manifolds. In collaboration with Lalonde and Polterovich, McDuff is applying this improved theory to study properties of the group of diffeomorphisms of a manifold that preserve its symplectic structure. This group has a subgroup of finite codimension that is generated by Hamiltonian functions, but it is not known in general whether this group is always closed in the full group. If it were, one might be able to formulate a topological reason for a symplectomorphism to be generated by a function (rather than a one-form). Another question that McDuff is working on (in collaboration with Abreu) is the extent to which the topological structure of the group of symplectomorphisms changes as the underlying symplectic structure changes. A particularly simple version of this problem appears when the underlying manifold is the product of two two-dimensional spheres and one changes the relative size of the spheres. They have shown that there is an even-dimensional cohomology class whose dimension jumps up by four each time the size of the larger sphere increases by another unit. They are working on understanding the mechanism that produces this behavior. A symplectic structure is a very basic kind of geometric structure that underlies almost all the equations of classical and quantum physics. In the last fifteen years, new tools have been developed that allow mathematicians for the first time to gain some understanding of the global meaning of this kind of structure. The most significant developments of the past few years concern, on the one hand, the elucidation of the structure of four-dimensional symplectic spaces and, on the other, new understanding of the wa ys that one can move around in a symplectic space. Together with Lalonde, McDuff completed the classification of a specially simple kind of symplectic 4-manifold called a ruled surface and is in the process of studying the structure of more complicated examples. She is also investigating the question of how much energy it takes to achieve a particular movement of space, and to find ways of estimating this energy on curved manifolds. ***